Socio-Economy, Interregional Interaction, and Demographic Shift in North Central Anatolia: Excavations at Prehistoric Cadir Hoyuk

With National Science Foundation support Dr. Sharon Steadman and her
colleagues will conduct two field seasons of archaeological research in the Yozgat province of
central Turkey (Anatolia), at the site of Cadir Hoyuk. The team consists of
field archaeologists, specialists in faunal analysis, paleobotany, lithics analysis, and ceramic
analysis. Investigation will concentrate on the prehistoric occupation at the site of
Cadir Hoyuk in the north central Anatolian plateau, primarily on the Chalcolithic and Early
Bronze I periods (ca. 5000-3000 B.C.) prior to the rise of the early second millennium state-level
societies. The lack of extensive prehistoric remains in this region has left a large gap in the
understanding of the transition in the north central plateau culture history from the early
farming/herding settlements in the fifth/fourth millennia to the rise of the Hittite Empire/State in the
early second millennium B.C.

Previous work in this region has demonstrated that the Chalcolithic and
Early Bronze periods witnessed extensive socio-economic changes, including
the rise of long-distance ("international") trade, the influx of a new, migratory, population, and the
development of increasingly complex society (culminating in the second millennium Hittite
empire). However, previously excavated sites were lacking in continuous occupation, making the
documentation of a lengthy and coherent occupational sequence impossible. Dr. Steadman's previous work at Cadir Hoyuk has demonstrated that this is a multi-period site, with a long occupational sequence.The NSF-funded research program will focus on the following three
investigative goals:

1. What was the nature of the indigenous Chalcolithic/EB occupation in this
region of
Anatolia?
2. What was the nature and extent of long-distance trade in the north central
plateau region?
3. What impact did the Late Chalcolithic arrival of a new population (later
to become the second millennium Hittite State) have on the indigenous Anatolian
socio-economic
organization?

The proposed fieldwork provides previously unavailable insight into the north
central plateau occupational history before, during, and after two important events in this
region's prehistoric sequence: the florescence of long-distance exchange, and the arrival of
immigrants who forever after changed the nature of central Anatolian demographics. The site
of Cadir Hoyuk has the utmost potential to provide answers to the proposed research
questions and will go far in enabling us to establish a secure prehistoric cultural sequence for this
little understood region of the Anatolian plateau.